Collaborative Research: III: Foundational Advances in Large Language Models for Pediatric Preventive Health Decision Support

Artificial intelligence (AI), particularly large language models (LLMs), is rapidly transforming healthcare. Yet most AI tools are designed for adults and do not adequately recognize health risks early, when timely intervention can improve lifelong outcomes. This project develops novel AI retrieval methods specifically designed to enable AI systems to better interpret health information within the context of a child's growth and development. This will increase the accuracy and relevancy of the information and communicate recommendations to users more effectively. By improving AI systems' ability to support using context within its output, this project advances AI and public health and creates new opportunities for personalized decision support across other domains, such as education. The project also provides training opportunities for students.

This award advances the foundations of context-aware neural architectures that enable LLMs to perform specialized reasoning for pediatric clinical decision support. The research develops new methods for representing developmental trajectories and longitudinal health records so that AI systems can interpret clinical evidence in the context of a child's evolving growth stage. It also investigates retrieval techniques that dynamically identify and integrate medical knowledge relevant to a patient's developmental status and risk profile, improving the accuracy and relevance of generated recommendations. In addition, the project explores adaptive language-generation methods that produce clinically precise explanations for healthcare providers while simultaneously delivering clear, accessible guidance to families. The resulting algorithms for context-sensitive representation learning, personalized knowledge retrieval, and audience-aware communication will be released as open-source resources, contributing broadly to machine learning applications that require dynamic reasoning and decision support in complex, evolving environments.